SGER: Radiation Transfer in Medical Laser Applications

ABSTRACT Proposal Number: CTS 9816593 Principal Investigator: M. P. Menguc The PI proposes to study the fundamental issues associated with a "laser scalpel." The project will involve a collaborative experimental/theoretical/ practicum effort between the PI at the Department of Mechanical Engineering and faculty of the Department of Laser Surgery at the University of Kentucky and the faculty of the Shriner's Research Center at the Massachusetts General Hospital. Experiments and theoretical studies will be conducted using numerical/analytical models of radiation transfer and laser propagation in tissue to study the effects of wavelength, pulse frequency, energy, and directionality. The goal is to create an interdisciplinary learning, documenting, and teaching approach which will ultimately lead to the seamless use of a smart laser scalpel.